Improving Hands-On Experiences for Biology Majors: Advanced Molecular Biotechniques, Computer Applications, and the Research Process

This project increases the exposure of biology majors to modern biological techniques and the research process. Through this grant, two new educational experiences are being added to the biology curriculum. The first is an upper division course in molecular biology, which engages students in a thematic series of laboratory experiences based on a specific research problem. The second is a program of supervised undergraduate research, which provides students with the opportunity to apply the tools of recombinant DNA technology to their own investigations. Specific hands-on applications that are being incorporated into these two new educational opportunities include CDNA library screening, nucleotide sequencing and computerized analysis, reporter assays for the analysis of gene promoter function, and the use of the Internet in scientific communication. Given these new opportunities, many biology majors may discover a previously unrecognized interest in basic science and view careers in academic and industrial science as less mysterious.